RIA: High Power Active Optical Pulse Compression

The objective of this Research Initiation Award project is to develop an optical pulse compressor that can be used with high power lasers, does not add to amplitude noise or timing jitter, and has very high throughput efficiency while providing pulse compression ratios in the range of 10 to 100. Current optical pulse compression technology is based on chirping pulses in single mode optical fibers by the nonlinear effect of self-phase modulation. Although high pulse compression ratios have been demonstrated, the utility of the technique is limited because of inherent tradeoffs between input power, pulsewidth, and fiber length. In addition, fiber coupling losses, induced polarization wandering, and thermal and acoustical interference all combine to create amplitude noise and long term power drift. We propose to impart the chirp on the pulses actively with high modulation index electro-optic phase modulators. The advantages to this approach are that the chirping mechanism does not depend on the nature of the input optical pulse, only the quality of the electrical drive signal to the modulator, which can be extremely good. We envision the pulse compressor to take the form of dielectric loaded microwave or millimeter wave resonators driven by highly stable synthesizers and clean power amplifiers and followed by grating-pair or prism dispersive delay lines. The efforts of the research will be directed at determination the optimum microwave cavity geometries and electro-optic dielectric materials for the particular input optical pulse characteristics. This device should have a major impact on the research efforts in ultrafast phenomena since it can be universally applied to all modelocked laser sources, independent of their power. Since large frame, high average power lasers are frequently used as pump sources for other lasers or nonlinear frequency converters, their performance will be similarly enhanced.